CAREER: Simulation and Modeling of Turbulent Air-Hydrocarbon Mixing and Combustion

Abstract
CTS-9983762
R. Miller, Clemson University

Combustion processes, which involve liquid fuel droplets in a carrier gas, are present in many technological applications. They also involve complex phenomena whose accurate modeling, as is sought in this research, will have important beneficial effects for these and other applications. The PI is well positioned to make the contributions that are promised in the proposal. His proposal is praised for his educational program that is expected to bring benefits to the identified student population.